ExCEL: Excellence in Computing at Every Level

This program is awarding multiyear scholarships to 47 full-time undergraduates and graduate students in bio-informatics and computing who demonstrate both academic potential and financial need. A special effort is being made to attract academically talented students from underrepresented groups including women and minorities. Industrial partners are providing career placement opportunities and internships. The project is increasing the quality, and number, of student support structures available for recruitment, retention, and career placement. Scholars are participating in a program that includes peer, faculty, and alumni mentoring designed to increase both the retention and graduation rates of majors in computing and bio-informatics.